Global Database of Borehole Temperatures and Climate Reconstructions

Abstract ATM-9320004 Pollack, Henry N. University of Michigan Title: Global Database of Borehole Temperatures and Climate Reconstructions This research award addresses the design, assembly, analysis and interpretation of a global data base of geothermal observations on continents relevant to climate change over the past 1000 years. This time interval spans both the pre-industrial and industrial periods, and is relevant to an assessment of both natural variability and anthropogenic forcing the Earth's surface temperature at the century to millennial time scale. The database will comprise (1) basic geothermal observations from field surveys, including borehole temperature vs. depth data, thermophysical properties and site descriptions, (2) a ground surface temperature history derived for each site by a standardized inversion procedure operating on the basic field observations, (3) regionalized composite histories derived by joint inversions and/or weighted averaging of individual sites, and (4) cross references to local meteorological and other nearby proxy data. The database will include data from several hundred sites distributed over six continents.